Boise Extravaganza in Set Theory (BEST) Conference, Boise State University

The Boise Extravaganza in Set Theory (BEST) is an annual
conference in Set Theory hosted by Boise State University. It has
run continuously since it began in 1992 and is the only regular
conference in North America devoted primarily to Set Theory. The
talks and the participants are representative of set theoretic
research in North America with topics ranging from large
cardinals, cardinal invariants of the continuum, core models,
fine structure, descriptive set theory, set theoretic topology
and analysis, forcing axioms, and combinatorics. The small scale
of the conference --- about 20 participants, most presenting
talks --- allows for an informal atmosphere and encourages
discussion between the representatives of various areas of set
theory.

The general format is that of a three day conference. Four
invited talks running approximately 50 minutes each are spread
throughout the conference with the remainder of the schedule
consisting of shorter contributed talks. NSF funds are used to
cover the expenses of the invited speakers and to help defray the
local and travel expenses of those who do not have their own form
of travel support, especially graduate students. The organizers
make a sincere effort to invite women, minorities, and young
members of the field.